Renovation of Physics Research Facilities

9313449 Halperin The Department of Physics and Astronomy at Northwestern University has exceedingly strong basic research programs and wishes to place them into advanced research environments by renovating their laboratories. This award allows Northwestern to modernize 11,300 square feet of research space in order to provide a state-of-the-art environment for advanced research in experimental condensed-matter physics and the design and construction of advanced detectors for use in condensed-matter physics and astrophysics. This modernization will take place in the Technological Building that has not been renovated in 50 years. The renovated laboratories will include clean-room environments, facilities for device fabrication, once- through air handling, and state-of-the-art vibration isolation. These improvements will greatly improve the department's research and graduate training programs in ultra-low-temperature physics, NMR studies of advanced materials, mesoscopic physics, device fabrication, Langmuir films, and the study of nonlinear optics. ***